Kinematic Hardening Model for Sand and Clay

The objective of this study is to develop a kinematic hardening model for soils that may be used in prediction of soil behavior during large stress reversals and earthquakes. This model will be developed on the basis of experimental evidence of the behavior sand and clay during large three-dimensional stress changes involving unloading and reloading with and without rotation of principal stress axes. Part of the experimental results are available and part will be generated under this study. The results available from triaxial, cubical triaxial, and torsion tests on sand and clay indicate that development of a kinematic hardening model is feasible.